SCI/IRNC: WHREN (Western Hemisphere Research and Education Networks): Increasing the Rate of Discovery and Enhancing Education across the Americas

This proposal would develop WHREN (Western Hemisphere Research and Education Networks) to address the existing and future needs for improved North American (especially U.S.)-South American connectivity. This proposal specifically focuses on the need for connectivity through new links, LILA (Links Interconnecting Latin America).

The goal of the WHREN project is interconnecting North America to emerging aggregation points in South America, and evolving the connections, resources and economies. By providing a hybrid of network resources to support high performance computing and networking services between North America and South America, a robust, fault-tolerant, high-capacity set of interconnections should ensure superior networking infrastructure support for e-science across the two continents over the next five years.